STTR Phase II: Engineering of Non-leaching Antibacterial Non-woven Textiles

This Small Business Technology Transfer Innovation Research (STTR) Phase II project proposes the development of a unique family of biocidal polymers that have been shown to be non-leaching, and do not require regeneration or refreshment of activity. The Phase I study demonstrated the synthesis of these polymers containing potent broad-spectrum biocides. The polymers were spun into nanofiber webs using electrospinning techniques. The webs were challenged with bacteria and a 99% reduction in bacterial viability in one hour was demonstrated. The Phase II program will continue to explore the electrospinning processing of the polymers. The polymers will be optimized for activity against bacteria, viruses and molds. Microscopic and mechanical tests will be performed on materials to identify structure-property relationships.

The commercial application of this technology will be in textile products where antimicrobial protection is critical, e.g., homeland security (biodefense) garments, first responders emergency clothing, hospital garments and supplies, etc. Current systems are water leachable and use can lead to reduced protection.